Chapman Conference on the Physics of Magnetic Flux Ropes

The Chapman Conference on the topic of magnetic flux ropes and reconnection is timely and important for many areas in solar- terrestrial research. The conference will bring together scientists from the solar, magnetosphere and ionospheric communities. The exchange of new ideas and methods will enhance the research produced in these areas.